The Social Structuring of Inequality

This study addresses the problem of labor-market stratification, examining the unequal distribution of earnings across occupations. The goal is to document trends in wage inequality, and to examine possible structural factors that might explain changes in the way wages are distributed. Despite the importance of this issue, much of contemporary scientific research focuses on individual abilities and work experience to explain earnings differentials, neglecting the effects of structural labor market characteristics. In contrast, Dr. Raffalovich plans to use pooled cross-sectional time-series data on employment and earnings in the United States from 1967 through 1981 to determine the impact of structural factors on wage inequality. Moreover, he also will examine how changes in the occupational and industrial composition of the national labor force may foster shifts in earnings inequality over time. Using Current Population Survey data as well as other government archival sources Dr. Raffalovich will document trends in wage inequality over the 1967-1981 period, and evaluate the effects of such factors as economic growth, industrial concentration, unionization, unemployment and capital intensity. For example, this study will test whether an increase in capital intensity will shift employment from high earnings to low earnings occupations. This focus on change in wage inequalities as related to changes in labor force composition is especially useful, given the recent shifts that have occurred in occupations and industries, especially the growth of the service sector of the U.S. economy and the substitution of capital for labor. By keying in on change, rather than wage inequality at but one point in time, this study will contribute substantially to our understanding of the dynamics of social stratification in the contemporary United States.